Workshop on Intelligent Computer-Aided Design; Columbus, Ohio; September 30 through October 3, 1991

This is a grant for partial support of a Workshop on Intelligent Computer-Aided Design; Columbus, Ohio; September 30 through October 3, 1991. The working conference aims to provide a forum for the exchange of ideas and experiences related to the use of Artificial Intelligence techniques in Computer-Aided Design (CAD). Participants will present and explore the state-of-the-art of Intelligent CAD systems, try to delineate future directions in both research and practice, and discuss ways to promote further developments.